Sparse and structured networks: Statistical theory and algorithms

The proposal focuses on Markov random fields and directed graphical
models, classes of statistical models that are based on a marriage
between graph theory and probability theory, and allow for flexible
modeling of network-structured data. The core of the proposal
consists of multiple research thrusts, all centered around the goal of
developing practical algorithms and theory for statistical estimation
with network-structured data. One research thrust concerns various
issues associated with model selection in undirected graphical models,
also known as Gibbs distributions or Markov random fields. Problems
include determining the information-theoretic limitations of graphical
model selection in high dimensions (where the number of vertices may
be larger than the sample size), not only for i.i.d. data but also
dependent data; developing methods for tracking sequences of networks
that evolve over time; and developing methods for data with hidden
variables. Another research thrust concerns various statistical
problems associated with directed acyclic graphical structures (DAGs),
including estimating equivalence classes of DAGs in the
high-dimensional setting; estimating causal relationships via designed
interventions; and efficient computational methods for DAG selection
using the Lasso and related methods. Overall, the proposed research
is inter-disciplinary in nature, drawing on techniques from
mathematical statistics, convex optimization, information theory,
concentration of measure, and graph theory.

Science and engineering abounds with different types of networks.
Examples include social networks such as FaceBook and Twitter,
networks of genes and proteins in molecular biology, network models
for economic and market dynamics, neural networks in brain imaging,
networks of disease transmission in epidemiology, and information
networks in law enforcement. In the real-world, the structure of the
underlying network is not known, but instead one observes samples of
the network behavior (e.g., packet counts in a computer network;
instances of infection at given time instances of an epidemic; emails
or text messages sent among a group of people), and the goal is to
infer the network structure. Methods for solving this network
inference problem have a broad range of applications. Examples
include inferring brain connectivity and disease etiology in
neuroimaging studies, detecting terrorist cells in social networks,
monitoring intrusions in computer networks, and understanding the
basis of gene-protein interactions in systems biology.